Modeling of Gravity Wave Breaking, Interactions, and Instability Processes in the Mesosphere and Lower Thermosphere

This researches the numerical modeling of gravity wave breaking and instability, wave transports of energy and momentum, wave spectral evolution, and the generation and evolution of, and mixing induced by, wave-generated turbulence. Wave influences in the atmosphere, only qualitatively understood, can only be addressed in a comprehensive manner using numerical techniques because of the complexity (and nonlinearity) of the important interactions. The proposed studies will also identify the processes that act most strongly to control the spectral evolution of the wave field and assess the validity of the various theories that have been advanced to account for the observed spectral behavior with altitude.